HSI-DCL STEM Experiences in Research for Early Science Success

This project was submitted in response to the Dear Colleague Letter for Hispanic Serving Institutions "Stimulating Research on Effective Strategies in Undergraduate STEM Education at Two-Year Hispanic Serving Institutions," NSF15-078. It is implementing a suite of educational approaches for rising STEM majors at Miami-Dade College InterAmerican Campus in partnership with Fairchild Tropical Botanic Garden. These experiences are built around two evidence-based teaching modalities applied to introductory STEM courses and authentic 8-week research experiences in biology. The impact of this combination of approaches on improving the retention of Hispanic students in STEM fields is largely untested in a Hispanic Serving community college environment. Such colleges are particularly important to the high education of Hispanic students. The teaching modalities are Peer Led Team Learning (PLTL) and Process-oriented Guided Inquiry Learning (POGIL). The project will provide early research immersion in plant biology/environmental science alongside supportive services such as peer tutoring, faculty mentoring, science lectures, research presentations, and other activities.

The project will determine the impact of these high-impact educational approaches and redesigned science curricula to engage and motivate students to persist and achieve in STEM fields.